Subjective and objective computations for reliability weighted integration

The human brain possesses a remarkable capacity for integrating disparate, complex streams of information into fast and optimal decisions. Within a half a second, for example, the brain can parse ambiguous audio and visual signals and merge them with prior knowledge to effortlessly comprehend spoken language. This adaptive efficiency is a part of what makes humans so intelligent. This project elucidates the precise computations guiding information integration in human cognition. Specifically, the project evaluates a novel computational framework governing how humans combine information across distinct sensory modalities, varied temporal scales, and between new information and prior knowledge.

The central objective of this research is to investigate how the brain weights the reliability of distinct informational inputs. Assigning appropriate weight to each source is foundational to intelligent decision-making as over-weighting or under-weighting information can result in either the loss of important evidence or an over-reliance on noisy, inaccurate sources. Although estimating optimal weights is a computationally demanding process due to the volatile nature of reliability in the real world, the human brain consistently achieves near-optimal integration. Using a combination of behavioral measures and computational modeling, this project tests the principle of subjective-reliability weighting, a rapid, heuristic algorithm driven by a metacognitive confidence signal that could be used by the brain to adaptively and efficiently integrate information sources in a near-optimal way. The new insights generated by this project hold broad implications for the development of metacognitive AI, the design of next-generation intelligent systems, and clinical interventions for neurological conditions characterized by impaired information integration.